IMA - Scientific Computing Equipment Acquisition

The Institute for Mathematics and Its Applications (IMA) with the School
of Mathematics at the University of Minnesota will purchase server
upgrade and desktop workstations that will be dedicated to the support of
research in the mathematical sciences. The equipment will be used to
support IMA annual programs in the areas of Mathematics in Biology
(1998-99), Reactive Flow and Transport Phenomena (1999-2000) and
Mathematics in Multi-Media (2000-2001). The IMA and the School of Math
will share two DEC Alpha based workstations which will significantly
increase the amount of numerical computational capacity available to both
institutions. Desktop workstations purchased will provide visualization
and computation resources on an individualized basis for IMA long-term
visitors and will also be able to serve as a distributed processing cluster
when not dedicated to individual use.